IUTAM General Assembly 2006 Conference

1
General Assembly Meeting of the
International Union of Theoretical and Applied Mechanics
to be held at
Brown University, Providence, Rhode Island
in August 2006
Abstract
This grant will support the biannual meeting of the General Assembly of the
International Union of Theoretical and Applied Mechanics (IUTAM) to be held in
Providence, Rhode Island, in August of 2006. This meeting brings together scientists
from around the world representing the adhering organizations of 49 countries and
territories, plus representatives of affiliated organizations. The mission of IUTAM is to
advance the science of mechanics worldwide and to foster international cooperation in
that effort. To fulfill that goal, a principal function of this meeting will be to select
approximately 15 international scientific symposia for subsequent years with broad
involvement among geographic regions of the world and among age groups in the field,
and to begin shaping the program for the next International Congress of Theoretical and
Applied Mechanics scheduled for Adelaide, Australia, in August of 2008.